Using Techniques of Molecular Biology to Improve Skills and Attitudes of Students in Biological Science Courses

9452238 Chapin Students' skills in biotechnology are enhanced by the introduction of molecular biology experiments into four freshman-sophomore courses. Students are also offered the opportunity to design and implement research projects using the laboratory techniques of molecular biology in a newly developed biology course.